Application of Neurophysiological Principles in a New MotionAnalysis Laboratory for Undergraduate Students

The aim of the proposed project is to improve the quality of instruction in an undergraduate human neurophysiology course by supplementing classroom teaching and discussion with laboratory experiences which are currently not available because of a lack of instrumentation. The proposed purchase of a motion analysis system and 5 computer workstations which use state-of-the-art technology in the computer controlled analysis of videotaped movement and muscle electrical activity will allow students the opportunity for direct involvement in the collection and analysis of data as well as the formulation of conclusions pertaining to the neurophysiological basis of human movement. The development of the laboratory experiences through the use of the proposed equipment will significantly enhance the students' abilities to comprehend complex neurophysiological concepts relative to normal and pathological sensory motor transformations by allowing them to actively participate in the replication of classical and original experiments.